Sixteenth Annual Telecommunications Policy Research Conference

The Telecommunications Policy Research Conference series, now in its sixteenth year, continues to serve as the principal forum for the telecommunications community for those doing both theoretical and applied research on telecommunications topics. The Sixteenth Annual Conference is to be held October 31 . November 1, 1988 in Airlie, Virginia. The Conference brings together researchers of varied disciplines from universities, research institutes, industry and public interest organizations with government policymakers in a setting conducive to open and fruitful exchange of information and ideas. The Conference will facilitate the development of rational, coherent telecommunications policy by presenting the results of the best available research on a wide range of key telecommunications policy issues, by clarifying the policy research agenda, and by stimulating new research that will be useful for policy purposes. The topics to be addressed at the Conference reflect the broad range of key policy issues that confront the nation in its transition to a services.based, market.oriented information economy. The dissemination of the very best current research relevant to these issues ensures that the policy.making community has at its disposal the most recent and the highest quality intellectual capital to aid its deliberations in this most important and controversial industry.